Advanced Masonry Concepts

This project is a feasibility investigation as outlined by the Small Grants for Exploratory Research (SGER) program. The purpose of the project is to investigate new concepts for masonry units and systems with consideration given to structural behavior, field constuctibility, durability, thermal performance, and all other performance attributes which contribute to the sufficiency, reliability, and economy of masonry structures.